Increasing Female/Minority Enrollment and Awareness in Biomedical Engineering Through Research Experiences for Undergraduates at Purdue University

This award provides support for an REU Site at Purdue University for up to three years. Ten students will be recruited from throughout the U.S. for a ten-week summer experience in research related to biomedical engineering. The program will serve to encourage undergraduates to pursue advanced degrees in engineering and thus impact the nations need to increase the number of U.S. citizens and permanent residents engaged in research-related careers. It is also anticipated that this REU Site will have a Broader Impact on the nations need to have broader participation in the research enterprise of citizens and permanent residents from demographic groups traditionally underrepresented in science and engineering.